ITR/AP: Flexible Environments for Grand-Challenge Climate Simulation

The PIs will develop a flexible modeling environment that they will make broadly available to the climate change community. This requires a radically new approach to the organization, development, documentation and dissemination of climate models. There is collaboration with Argonne National Laboratories for development of the open source, providing an online textbook documenting its use, and providing a system for collecting, testing, certifying and disseminating modules developed elsewhere. The system will be developed within the interpreted object-oriented Python language. This has been used successfully for a range of other scientific applications. Work under this award will resolve the grand-challenge mysteries facing climate science using coupled ocean-atmosphere modeling. A confluence of developments of physical understanding, numerical methods and computing power makes it feasible to address questions related to different epochs in the paleoclimate record. The work is important because it represents a testbed for novel software development approaches to climate modeling.